Engineering Foundation Conference on "Managing America's Aging Bridges", Palm Coast, Florida, Novermber 11-15, 1989.

This project will convene experts in bridge engineering design, analysis, fabrication and construction, to discuss the problems and solutions to the aging of the bridge systems. Recommendations will be distributed to decision-makers involved with bridge construction.